MRI/RUI: Acquisition of a Thermogravimetric Analyzer-Mass Spectrometer (TGA-MS) System for Research and Student Training

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at James Madison University will acquire a thermal gravimetric analyzer - mass spectrometer (TGA-MS) instrument. This equipment will enhance research in a number of areas including a) investigating the kinetics of decomposition reactions that occur on volatile organic compounds catalysts; b) studying the stability andpotential catalytic activity of novel framework phosphates and phosphonates; and c) determining the mechanism for the decomposition of precursors during the formation of thin films with low and high dielectric constants.

The TGA-MS instrument will enable researchers to conduct high-quality research that will increase the knowledge base in several areas of materials chemistry that could lead to the development of better catalysts. The instrument will also play an important role in the design and development of new project-based laboratories that emulate the research experience in traditional classroom environments.